Collective Spin States in Single Crystal Multinary Oxides

9701735 Shelton This experimental research program focuses on distinct classes of materials that display competing collective spin states. There is an emphasis on materials that have an inter-relationship among their crystallographic properties and their collective behaviors that are manifested at room temperature and below. To determine the intrinsic physical properties, the research stresses experiments on high-quality single crystals. Two families form the core of these studies; namely, spin Peierls and spin gap compounds such as CuGeO3, CaV4O9 and derivative compounds and colossal magneto-resistive compounds such as (La,Ca,Bi)MnO3, Eu14MnSb11 and related materials. To ensure consistency and uniformity in interpreting the experimental results, a great variety of complementary experiments will be performed on the same single crystals. %%% This experimental research program focuses on two families of materials that show great promise for technological applications and are associated with distinctive magnetic properties; namely, spin gap and colossal magneto-resistive (CMR) compounds. Some examples are CuGeO3, CaV4O9, (La,Bi)MnO3, and Eu14MnSb14. These materials are attracting great attention from the magnetic recording industry. Due to the intrinsic complexity of these multi-component materials, great emphasis is placed on using the highest quality crystals in this study. Goals with practical aspects include: elemental substitutions to optimize the performance characteristics; discovery of new materials to raise the critical operating temperatures of the CMR compounds. ***